Integrating High Performance Computing into Research: Molecular Dynamics Simulation in Chemistry, Physics and Engineering

We propose an interdisciplinary training program, based on student recruiting in chemistry, physics and engineering, focused on the application of high performance computing to scientific research. The research focus of this program - molecular dynamics simulations which seek to characterize the behavior of complex systems of many interacting "particles" (ranging from atoms in proteins to stars in the galaxy) - is an important unifying theme in applying high performance computing to several critical areas of science and technology. Our program builds on the strengths of the Center for Computational Science at Boston University which has served as a focal point for interdisciplinary research collaboration of the PI's. Since 1988, we have pioneered the development of massively parallel supercomputing in an academic context on our Connection Machine. The GRT program will provide an organized framework of seminars, discussions and facilities which will bring graduate students from different disciplines together to focus on common computational themes which arise in the effective exploitation of high performance computing in science. The training program will include teaching and internship options.